A new approach to computational model evaluation: Benchmarking against infant experimental data

This project is about determining when English- and Spanish-learning infants become sensitive to the sequencing of consonants and vowels in their native language. For example, English words can begin with ‘st’ (as in ‘state’ or ‘stamp’), while Spanish words cannot. The researchers will use experimental findings from studies on infants to evaluate predictions made by computational models that represent different hypotheses about how infants learn language. This comparison will provide insight into the specific mechanisms used by infants. In addition, uncovering the detailed timeline of when infants tune into sound sequencing restrictions will enable a better understand the roots of the difficulties some children with communication disorders have in learning sound sequencing. A secondary outcome of this project is the greater inclusion of Spanish-speaking populations in developmental research, which is important given the changing demographics in the United States.

In recent years, many computational models have been proposed to explain how infants learn language. Multiple model architectures typically achieve similar levels of success when benchmarked against the performance of adult speakers. In this project, computational models will be evaluated directly against infant behavior in order to provide additional criteria for distinguishing between them. More specifically, the researchers will evaluate whether infants’ knowledge of sound sequencing restrictions in their native language can be supported by the output of different computational models of word segmentation. In addition to providing a detailed timeline of the acquisition of sound sequencing restrictions and a better understanding of the developmental mechanisms used by infants, this project will also serve as a template for future studies that aim to compare computational models directly against infant behavior.